Surface Chemistry Studies with Ion Beams and Lasers

This wide ranging research project, supported in the Analytical and Surface Chemistry Program, addresses the fundamentals of ion/surface interactions, with the goal of developing and implementing surface analytical techniques. During the tenure of this three-year standard grant, Professor Winograd and his students at the Pennsylvania State University will carry out measurements of energy and angle resolved distributions of atoms and molecules desorbed from ion bombarded surfaces. Postionization of the desorbed neutral species will be used to develop molecular surface imaging techniques. Theoretical modelling of these processes will be closely coupled with the detailed experimental information obtained in these investigations. Applications of these methods to surface structural analysis, compositional imaging of surfaces, and characterization of electronic materials will be stressed. The use of ion beam methods to analyze surface structure and composition is the focus of this research project. Detailed measurements of the energy and angular distribution of sputtered ions and neutrals will be coupled with theoretical modelling of these processes in order to develop the understanding necessary to implement these methods as molecularly sensitive surface imaging tools. Applications to a wide range of problems in the areas of electronic device manufacture, pharmaceutical discovery, and structural biochemistry are expected as a result of this work.